Studies in Riemannian and Complex Geometry

Proposal 0305865
PIs: Michael Anderson, Claude LeBrun
Sr. Assoc.: Justin Sawon

STUDIES IN RIEMANNIAN AND COMPLEX GEOMETRY

Anderson, LeBrun and Sawon will pursue research on various topics in
differential geometry with close links to other key areas of the
mathematical
mainstream, such as mathematical physics, differential topology,
partial differential equations, algebraic geometry, and several
complex variables. Anderson will carry out research on general
relativity, Einstein metrics, and the geometrization of 3-manifolds.
LeBrun will work on the Riemannian geometry of low-dimensional
manifolds,
with a focus on curvature and topology in dimensions 3 and 4, and
on Zoll metrics in dimension 2. Sawon will study compact hyper-Kaehler
manifolds and quaternion-Kaehler manifolds from the point of view of
Rozansky-Witten invariants, knot invariants, and topological quantum
field theories.

It is expected that the broader impact of this research program will
be significant.
Many of the problems under study are of great interest
to theoretical physicists working in general relativity,
supergravity, and
string theory; moreover, members of the group are actively developing
links with physicists working in these areas through
participation in conferences, seminars and collaborative projects.
The project will also directly contribute to the training of a
new generation of mathematical researchers, as
members of the research group are actively engaged in the supervision
of many graduate students, including women and minorities.